NSF-BSF: Opening Up the Minutes-duration Optical Transient Sky

In recent years, advances in detector technology have enabled optical sky surveys to scan wide areas of the sky with a cadence of 1–3 days, significantly faster than the traditional roughly one week timescale designed to capture stellar explosions called supernovae. As a result, new classes of rapidly changing astronomical objects known as transients have been established, such as Fast Blue Optical Transients (FBOTs). Over smaller sky areas, surveys have also begun to probe timescales of a few hours, revealing phenomena including orphan afterglows to gamma-ray bursts. But even shorter durations—tens of minutes or less—have barely been explored. In 2022, a serendipitous discovery revealed that one FBOT (designated AT2022tsd) produced minutes-duration optical flares with supernova luminosities for months after the initial explosion. The existence of such flares provides a new way to study transient remnants and progenitors, the role of compact objects in powering transient emission, and the physics of relativistic outflows. A collaborative project between Cornell University (funded by NSF) and the Weizmann Institute of Science (funded by the Israeli Binational Science Foundation) aims to discover and characterize minutes-duration extragalactic
transients. One telescope in a telescope array built for such surveys will be used for education. The work will include the development of several modules for college and high school students that are based on high-quality images, including monitoring Jupiter’s satellites and deriving Kepler’s third law; measuring the parallaxes
of nearby stars; resolving Io’s surface and looking for variations due to volcanic deposition; and monitoring short-period variable stars.

The investigators will (i) conduct a blind search using the Large Array Survey Telescope (LAST), a new facility that is conducting high-cadence observations of wide sky areas; (ii) use LAST to conduct a targeted search at the positions of nearby transients; and (iii) perform an archival search for flares at the positions of nearby transients using optical survey data from the Zwicky Transient Facility (ZTF). The team will conduct multiwavelength observations of any candidates. The work will address high-priority goals identified in the Astro 2020 Decadal Survey: determining the sources powering transients, understanding the production of relativistic outflows by compact objects, and opening up new parameter space for transient discovery. The flares observed in AT2022tsd established a new signature of a “central engine” (active compact object). Measuring the rates of such flares, and determining what types of transients they are associated with, will help to understand the role of central engines in powering transient emission, as well as what kinds of compact objects are left behind after the transient event (and in what configuration, e.g., a surviving binary). Follow-up observations will reveal the flares’ broad-band energy distribution, essential for determining their emission mechanism. This work will also constrain the progenitors of FBOTs themselves, with implications for our understanding of black-hole formation and growth.